Predictive Anatomical Models for Streaming Potentials in Bone

Streaming potentials and streaming currents exist in bones when they are bent or subjected to hydrostatic pressure. It is thought that changes in these signals during bone remodeling may be important in controlling the bone remodeling process. This project will develop an analytical macroscopic model of streaming potential and streaming current generation based on cortical microarchitecture of bone. The model will be validated using existing data and data from experiments that are proposed as part of this study. This work is important since the results could lead to an understanding of how electric fields are involved in the fracture healing process and how electric fields might be used to control osteoporosis.